ITR/SY: Reversible Computing Using Superconducting Quantum Devices

EIA-0121428
Averin, Dmitri V
SUNY at Stony Brook

ITR/SY Reversible Computing Using Superconducting Quantum Devices

This project is exploring two options of using the unique macroscopic quantum properties of superconductor devices for implementation of classical and quantum reversible computing.

Under the first objective of classical reversible computing, experimental demonstration of reversible processing of digital information in a basic integrated circuit using Parametric-Quantuton type devices, with bits coded by single quanta of magnetic field are investigated. The implementation of this type of computing device is opening a way to information processing at a rate of about 1025 bits per second per Centimeter Square.

Under the second objective of quantum reversible computing, the experimental studies of decoherence in the charge-based qubit ("single-Cooper-Pair Box"), using the radio-frequency single-electron transistor as the readout, is being achieved. Measurement of the decoherence time and investigation of possible ways of suppressing the decoherence is facilitating more rapid development of a scalable quantum computer.